LTREB: Testing tipping points in a model rocky intertidal meta-ecosystem – Climate-change, increasing variances, and response mechanisms

In recent decades, ocean ecosystems, long thought to be immune to change, have undergone disruptions to their structure, diversity, and geographic range, yet the actual underlying reasons for such changes in oceanic biota are often unclear. Coastal intertidal zones (i.e., the shore between high and low tides) have long served as important ecological model systems because of advantages in accessibility and ease of observation, occupancy by easily studied and manipulated organisms of relatively short lifespans, and exposure to often severe environmental conditions. This research will address the stability of a well-known rocky shore system along the Oregon and California coasts. Prior long-term research indicates that, although casual observation suggests these systems are stable, in fact, they may be on the cusp of shifting into another state, losing iconic organisms like mussels and sea stars, and becoming dominated by seaweeds. These changes might be comparable to losing trees and large predators from terrestrial systems. This study would result in the training of undergraduates and graduate students, including individuals from under-represented groups. Additionally, this study would include outreach to the general public.

The researchers will focus particularly on impacts of increasing and more variable warming on community recovery. For example, climate oscillations (e.g., El Niño), coastal upwelling, and particularly temperature have all changed in recent decades in ways leading to increased stress on intertidal biota. In apparent response, coastal ecosystems evidently have become less productive, organismal performance (growth, reproduction) has declined, and key dynamical processes (species interactions) have weakened. The new research will pursue these strong hints of an impending “tipping point” by (1) continuing the projects that led to the insights of increasing instability, (2) adding new projects that will pinpoint ecological changes, and (3) expanding the region of work to include locations in California. Research will assess whether or not sea stars recover from wasting disease, experimentally test if species interactions are indeed weakening, quantify the annual inputs of new prey and changes in abundance, diversity, stability, and resilience of intertidal communities, and document changes in the physical environment. Using field observations and experiments, the research will provide insight into impacts of environmental change, particularly warming, on the future of coastal ecosystems, and more generally, into possible future states of Earth’s ecosystems. Using these data, we will test the hypothesis that direct and indirect effects of climate change are driving, or may drive these systems into new, alternative states.